Space Weather: Construction of a Web-based Empirical Model of the Earth's Ionosphere Using Incoherent Scatter Radar Data

This proposal is for the construction of a comprehensive web-based regional empirical model of the ionosphere using incoherent scatter radar (ISR) data from the period 1970-present. This model will include two parts: first, a model of basic and derived scalar parameters as measured at Millstone Hill, Massachusetts (42.6o N), including electron density Ne, electron and ion temperature (Te and Ti), neutral meridional wind, and exospheric temperature; and second, a model of the ExB plasma drifts and corresponding electrostatic potential patterns, as obtained from measurements at Millstone Hill and at the Sondrestrom facility in Greenland (67.0oN). The parameters that will be modeled have been identified in the National Space Weather Program (NSWP) Implementation Plan as important ones which must be specified and forecast in response to customer operational support requirements. All of them have also been identified by the NSWP Metrics Panel as either 1st, 2nd, or 3rd priority parameters which define the state and condition of the ionosphere-thermosphere (IT) system.